Computer Graphics for Geographic Analysis and Problem Solving

The purpose of this laboratory instrumentation project is to improve and increase computer usage in statistical analysis and graphics applications in upper division (major and minor program) geography courses. Students will have the opportunity to access large data bases, perform more sophisticated statistical analyses, and produce maps, graphs, and charts in a much less time consuming manner. This will allow more time for material research and report writing, as well as encouraging additional in-depth data analysis and graphic presentation. The proposal will continue the computer applications upgrading begun by the Department in the middle l970's as part of an ongoing effort at affording geography students the best education possible within the discipline with regard to both personal enrichment and career opportunities.